Doctoral Dissertation Research in Geography and Regional Science

Few explorations of the implications of the important relations between surveillance, space, and social control have been made outside the narrow institutional confines of prisons, asylums, and similar settings. During the nineteenth century, the U. S. government expended considerable effort to bring Native Americans under its dominion, and its task was particularly difficult in the case of the more mobile tribes. No native group posed a greater threat to American expansion than the Northern Great Plains Indians. The eventual conquest of the Northern Plains tribes depended crucially on the U. S. government's dealings with the Red Cloud band of the Dakota Indians during the span of existence of the Red Cloud Indian Agency, 1871-1880. This doctoral dissertation proposal poses the following significant historical geographical question about the conquest: Did social control dependent significantly on surveillance and did surveillance in turn depend on spatial characteristics of the watched population? The project will use documents on microfilm at the National Archives in Washington which include correspondence between Indian agents and Commissioners of Indian Affairs, records of the Dakota Superintendancy, annual reports of Sioux ageneices, correspondence of the departments of War and Interior, and records of treaty negotiations to construct a detailed history of the conquest of the Red Cloud band. It will assess the degree to which this history was driven by relationships between spatial fixation, the production of knowledge, and social control. This research focuses on the spatial aspects of processes of modernization that have not as yet been recognized as prerequisites for the establishment of modern social control. It will provide valuable information on the relationship between space, knowledge and social control. If the hypothesis that the links between space, knowledge, and control were important to the establishment of control over the Red Cloud band is supported by documentary evidence, the research will contribute to establishing a new niche for historical geographers and for geographers interested in the present day: describing and explaining the spatial conditions of possibility for modern social control based on surveillance. The project also will provide an excellent opportunity for a promising young scholar to continue to develop independent research skills.